"WHAT IS GRADUATE SCHOOL AND HOW DO YOU SELECT ONE," A National PBS-GEM Satellite Teleconference, October 3, 1991

The National Consortium for Graduate Degrees for Minorities in Engineering, Inc. (GEM) is funding its second teleconference. The overall goal of this national teleconference is to inform undergraduate students and employees without advanced training in science and engineering fields of the difference between undergraduate education and graduate level training and responsibilities. In addition, this teleconference will focus on the process of selecting the graduate school best suited to one's particular needs. This information will be prepared and presented with a multi-ethnic and multi-racial viewing audience in mind.